Semiconductor Device Modeling by Deterministic Self-Consistent Solution to the Poisson and Boltzmann Transport Equations

9314084 Goldsman We are developing a new approach to device simulation by direct, self-consistent solution of the Poisson equation and the Boltzmann transport equation (BTE). The method will quickly calculate the momentum distribution function for a semiconductor device. To solve the BTE, the distribution function will be expressed as a quasi-infinite spherical harmonic (SH) expansion, with unknown coefficients that depend on energy and position. To find the coefficients, a system of arbitrarily high-order equations will be obtained by projecting the BTE onto the SH basis. The system will then be solved numerically to yield the coefficients and thereby the device distribution function. ***